CAREER: Coherence and quantum control of strongly interacting systems

This CAREER combines research and educational activities in several areas of quantum information theory. The principle goals are to develop methods for accurate, coherent quantum state manipulation of strongly interacting systems in quantum optics and atomic, molecular condensed matter physics. The main thrusts are; quantum state control in mesoscopic systems and atom interactions mediated by optical photons. A graduate course on open quantum systems and the physics of quantum information will be developed and outreach activities fo high school and the general public will be developed and presented.